Stages of Doctoral Persistence: A Three-Year Panel Study of Majority and Minority Doctoral Students

9450265 Tinto A three-year longitudinal quantitative and qualitative study is proposed of two discrete panels of majority and minority doctoral students, one consisting of beginning doctoral students, another of doctoral students who have been admitted to candidacy,. the selected panels are drawn form doctoral student populations in four different major graduate institutions who are pursuing doctoral degrees in three different areas of inquiry: the physical sciences, the social sciences, and the professions.